Investigation of Optical Scanning Holography & Real-Time Two-Pupil Processing

An acousto-optic approach to two-pupil synthesis in a pupil interaction regime has been proposed to synthesize bipolar point spread functions (PSFs) in incoherent image processing. The method consists of simultaneously scanning the input with the impulse responses corresponding to the two pupils which are offset in temporal frequency via acousto-optic diffraction. Subsequent heterodyne detection demodulates the synthesized PSF. It has been pointed out that, when the processor is operated in an out-of-focus mode, i.e., the scanning beam is not focused onto the input exactly, the applications of the processor can be extended to include holographic recording, somewhat reminiscent of side-looking radar. In the project proposed here, this novel approach to optical scanning holography is investigated. Also, the potential applications of the processor, while operated in the out-of-focus regime, are investigated further in the context of two-pupil processing. The potential significant applications of such a processor are in the area of optical holography for large-scale objects as well as that of television transmission of a hologram for two-dimensional objects. The results of this work could also lead to better 3-D information processing.